Methods for Reducing the Blocking Artifact Observed in Images which have been Compressed using Transform Coding and Vector Quantization

This Phase II project addresses the problems in the quality of images transmitted in a computer environment. A common problem is the "tile effect" which is introduced by compression of the signal for transmission and then decompression for viewing. The principal investigator is developing a new algorithm, called the JPEG/RBC algorithm, which is based on a two source decomposition derived from a noncausal model for image data and fits closely within the framework of the JPEG standard. A preliminary version of the algorithm was shown in Phase I to reduce this problem as well as the compressed data rate when compared to commonly used algorithms. Potential applications include photo ID systems, medical imaging, intelligence and prepress.